Thermodynamics and Kinetics of Protein Aggregations

The objective of this project is to use a combination of experiment and theory/simulations to study protein aggregation as a competitive process to folding at high protein concentrations. One strategy will be to study, by experiment, the influence of specific interactions between amino acid residues and secondary structure on the stability of aggregates vs. the native three-dimensional structure. A secondary strategy will be to determine, from computer simulations and theory, the general characteristics of minimal models of heterogeneous polymers that can either aggregate or fold.